Faculty Enhancement Workshops in NMR Spectroscopy

NMR Concepts is offering two workshops each summer for three years. The workshops will improve the ability of undergraduate faculty to teach NMR courses and to conduct research. Each workshop will consist of lectures, laboratory sessions, and problem solving sessions. There will also be keynote speakers and classroom presentations by the participants. The workshops end with round table discussions to aid the participants in incorporating their new knowledge into their courses and research efforts. The first workshop, NMR Concepts and Operating Techniques, presents the physical concepts of NMR and includes spectrometer operation, the Fourier transform, quadrature phase detection, data treatment, relaxation measurements, and NOEs. The second workshop, Intermediate and Advanced Interpretation of 1D and Basic Interpretation of 2D NMR Spectra, reviews the general features of proton and carbon spectra and then treats the use of relaxation time measurements, proton decoupling procedures, NOE, and some multinuclear NMR. The keynote speakers will be selected from academia with a focus on how they have integrated NMR into their curriculum and how they use it in their research. Participants will be expected to share through a variety of means instructional materials that they develop as a result of their participation in the workshop.